Integrating Science and Mathematics Education Research into Teaching: A Conference for Students, Teachers and University Faculty in Science, Mathematics, and Related Fields

This proposal from the University of Maine Center for Science and Mathematics Education is a request for a TPC Conference/Symposium to fund a six-day national conference and summer academy entitled "Integrating Science and Mathematics Education Research into Teaching." The purposes of the conference are: (1) to bring together all participants in the science and mathematics education research enterprise (teachers, administrators, scientists and mathematicians, education faculty, future teachers) to exchange ideas about research and curriculum innovation ongoing in their fields; and (2) help teachers integrate research-based instructional strategies, particularly those that depend on innovative uses of technology, into their teaching practices